CAREER: Dielectric Engineering of Quantum Wire Solids: Fundamentals to Applications

Technical: This project addresses fundamental properties of quantum-wires with emphasis on control of electronic and optical properties by the dielectric environment. Dielectric modification is anticipated as an addition to bandgap and effective mass control commonly applied to epitaxial semiconductor heterostructures. The research plan includes: 1. theory for the effect of dielectric environments on transport properties of quantum-wires, 2. materials/configuration design and test to achieve desired properties of quantum-wires. The research addressed is expected to lead to development of unconventional methods to control and use quantum-wires in electronic and optical devices forming the basis for a wide range of applications such as transistors, light-emitting diodes, photodetectors, and photovoltaics. The effect of the dielectric environment on the properties of quantum wires may also seed ideas for sensor technologies.
Non-technical: The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to new understanding and capabilities for potential next generation electronic/photonic devices. The project provides unique opportunities for graduate and undergraduate training in an interdisciplinary field. The project also includes an outreach program comprising on-site experimental demonstration of nanoscale scanning probe techniques for local high-school students with collaboration of a high-school teacher.